Mathematical Sciences Computing Research Environment

9406617 HARTIGAN The Department of Statistics at Yale University will purchase a SPARCstation 10 (Model 512MP) server, two X-terminals a laser printer and peripherals. This equipment will be dedicated to supporting research in the mathematical sciences, including (i) neural network computations; (ii) probabilistic models for constructing and evaluating classifications, and the role of classification in data collection and justification of probability distributions; (iii) exact finite sample confidence bands for nonparametric functionals; (iv) symbolic computation to guide asymptotic theory; (v) information in semiparametric mixtures and hierarchical mixture models.